Application of Adaptive Control Techniques to Intelligent/ Smart Structures

This project is concerned with the application of adaptive control techniques in the development and analysis of structures imbedded with intelligent/smart materials. For example, structures such as a cantilever beam embedded with a bulk material having "smart" properties will be considered; and, the distributed actuator such as current, voltage and/or applied magnetic field will be used to control the properties of the smart material so as to control/suppress the vibrations. We propose to use an embedded distributed sensor in conjunction with embedded distributed actuators to achieve the total internal sensing and motion control tasks. By this, the spillover phenomena associated with a "truncated" model due to neglected modes can be minimized. Possible applications of this work are in the fields of aeronautics, space and atomic energy development. Materials for use under severe environmental conditions not only should have high reliability, but functions such as self-diagnosis, damage resistance, self-repair, or notification of residual life should be provided to avoid accidents. The project will consist of the following steps: Modeling and analysis comprising the development and implementation of parameter estimation algorithms, development of control policies concerning passive and active control of structures and updating periodically material characteristics (smartly) to adjust the controller parameters (for adaptive control). Some new and novel techniques in the parameter estimation and adaptive control of parameter-distributed system will be evolved on the basis of distributed actuators and sensors measurements.